Arithmetic, Cohomology, and Zeta Functions

There are many fascinating conjectures relating arithmetic and special
values of zeta functions. The first project (with Milne) is the
construction of a triangulated category of integral motives over a finite
field with applications to the Lichtenbaum-Milne conjecture on special
values. The second project is to prove formulas for special values at
half-integers of zeta functions; this is a completely unexplored area.
Recent work of the PI has led to a formula for the special value at half
using supersingular elliptic curves. The third project involves specific
questions about the Weil-group of number fields and class field theory.

The study of special values of zeta functions was pioneered by Euler; it
is a subject of very high contemporary interest and research. It involves
geometry, algebra and arithmetic in a very sophisticated way. It
leads to beautiful identities between discrete (integers) and
continuous (transcendental numbers like pi). These arise even in the
study of Feynman diagrams in quantum field theory. There are
many applications in coding theory, physics, and cryptography. There are
many challenging problems for undergraduate and graduate students. The
interdisciplinary nature will help broad dissemination and enhance
scientific and technological understanding.